NSF PCL-Test Bed: Building America’s AI Infrastructure for Self-Driving Laboratories

NSF PCL-Test Bed: Building America’s AI Infrastructure for Self-Driving Laboratories

What if America’s scientists could move from ideas to experiments to data at the speed of thought? This project creates transformative national infrastructure for AI-driven science by building a programmable cloud laboratory node that converts written experimental ideas into reliable, automated experimental workflows. Today, discovery is slowed by a hidden bottleneck: laboratory methods are written for human interpretation, leaving critical details ambiguous, difficult to reproduce, and hard to scale across institutions. This project removes that barrier by enabling AI to translate scientific intent into programmed experiments that automated laboratories can execute, validate, and improve. The result will be a new foundation for self-driving science: faster discovery, more reproducible results, and broader access to advanced experimental capabilities for universities, startups, nonprofits, government laboratories, and small businesses. By training a workforce fluent in AI, biotechnology, and advanced manufacturing, this investment will strengthen U.S. competitiveness, pharmaceutical supply-chain resilience, economic growth, and national security.

This project establishes a programmable cloud laboratory node that advances the National Science Foundation’s vision for self-driving, interoperable, scientific infrastructure. It combines large-scale laboratory automation, artificial intelligence, machine-actionable experimental standards, and closed-loop experimentation to address a major bottleneck in automated science: converting human-written laboratory procedures into reproducible, machine-executable experiments. The laboratory side of this effort includes over 700 programmable scientific instruments spanning analytical and synthetic chemistry, biology, and materials science, ensuring that this bottleneck is eliminated for a wide swath of the laboratory processes critical to both next-generation science and national security. To accomplish these goals, the project will develop three interlocking AI tools. These agentic systems will (1) identify ambiguous or underspecified elements in written protocols, (2) autonomously design targeted experiments to optimize missing parameters through closed-loop learning, and (3) incorporate benchmarking, provenance tracking, and reliability assessment to improve the safety, auditability, and reproducibility of autonomous experimentation. This node will also serve as the interoperability hub for the national programmable cloud laboratory network, spearheading the language-design effort needed for nodes to share, validate, and execute experiments through common, machine-actionable standards. Initial science drivers will focus on pharmaceutical quality testing and analytical characterization using protocols developed by the U.S. Pharmacopeia, demonstrating applications for scalable quality testing and resilient domestic manufacturing—all while building systems to train the workforce necessary to implement and operate this infrastructure. To accomplish this multi-dimensional effort, the team includes contributors from Stanford University, Purdue University, Morehouse College, Emerald Cloud Lab, and the U.S. Pharmacopeia.